Japan JSPS Program: The Development of Space Very-Long- Baseline Interferometry with the Japanese VSOP Mission

9600393 Morrey This award supports a 12 month Japan Society for the Promotion of Science (JSPS) Postdoctoral Fellowship for Dr. Craig Morrey at the National Institute for Basic Biology, Okazaki, Japan. Dr. Morrey will work with Dr. Yoshitaka Nagahama, professor in the Department of Developmental Biology, Laboratory for Reproductive Biology, on a project is entitled "Endocrine Correlates of Sex Change: Importance of Key Steroido-genic Enzymes". The proposed research will analyze sequential, protogynous hermaphroditism in teleost fishes in an effort to understand the simultaneous process of sex determination and sexual differentiation. As an individual undergoes the transition from female to male, physiolo-gical pathways must be redetermined. Similarly, corresponding mechanisms of male differentiation must be activated. Although steroid hormones are generally considered downstream mediators of sexual differentiation, the fate of teleost germ cells may be significantly influenced by hormonal profiles. Consequently, teleost sex-determining cascades may be post- maturationally labile and triggered by steroid hormones. To begin investigating potential roles for steroid hormones, previous research has focused on expression studies involving key steroidogenic enzymes, particularly cytochrome P450 aromatase and cytochrome P450 11b-hydroxylase. The proposed research extends this line of investigation in two ways. First, translation of messenger RNA of the respective enzymes will be verified using immunocytochemical techniques. Combined with messenger RNA content, these results will determine the potential for the transitional gonad to produce steroid hormones by confirming the presence or absence of protein. Second, collaborative efforts involving several different model species will lend insight into potential similarities among systems. Results of these comparative studies will determine the applicability of a general model for the role of steroid hormone s in the regulation of sex change. Overall, the proposed research will provide a solid foundation from which to base future investigations of the physiological mechanisms regulating sex change in teleosts by providing critical information concerning potent mediators of sexual differentiation. ***